SBIR Phase II: Interactive Earth: Tools for Earth Systems Science

This SBIR Phase II project proposes to research and develop ways to increase accessibility and utilization of Earth systems science data and visualizations for secondary school teachers and students. The commercial product will consist of a DVDROM, curriculum, and web site. Building on WorldLink Media, Inc.'s previously published CD product, Interactive Earth, the firm will develop an integrated tool set for data display and image interpretation that will enable students to inquire, hypothesize, analyze, discover, and communicate with peers-replicating the work of real scientists. Much more than a static software program, the Interactive Earth DVD-ROM will be part of a "learning platform" that includes an in-depth curriculum package, access to a rich archive of global data via the web, and professional development opportunities. Partnerships with NASA's Earth Observatory web site and the World Resources Institute's EarthTrends project will enable classroom access to extensive global data sets and visualizations. TERC, a research and education organization, will develop a curriculum that aligns with the National Science Education Standards. This SBIR project recognizes the vital interplay between a curriculum developer (TERC), data providers (NASA and World Resources Institute), and a media designer and tool-builder (WorldLink) in creating exemplary learning materials.
Earth science is of national strategic importance as a field of research and innovation. The potential contribution to our schools and students is not just in Earth systems science, but in the broader applicability of the skills developed by students to related domains of science, math, geography, and other fields. These thinking skills include inquiry, visual literacy, understanding systems and models, and the ability to apply knowledge and problem solving to a range of real-world issues.